CSUMS: Undergraduate Research Experiences for Computational Math Sciences Majors at ASU

Kostelich
0703587

The goal of this CSUMS project is to build a diverse group
of undergraduate students in the computational mathematical
sciences program at Arizona State University, each of whom
participates in cutting-edge research projects during the last
two years of their undergraduate programs. At any given time,
two cohorts of 11 students each participate: they begin the
program at the start of their junior year and complete it at the
end of their senior year (i.e., after 4 semesters). Incoming
students, whose expected preparation includes multivariable
calculus, linear algebra, and ordinary differential equations,
participate in a 1-credit seminar course for two semesters to
prepare them for the upcoming summer's projects. Summer projects
consist of 8 to 10 weeks of full-time work on a research project
under the supervision of an experienced faculty mentor. Students
who have completed their projects give practice talks in the
seminar and are expected to present their work at appropriate
professional conferences as well as to write an honors thesis or
research paper.

Student research projects involve timely problems in
atmospheric sciences, including weather and climate forecasting;
supply-chain modeling; mathematical techniques for improved
medical imaging (e.g., magnetic resonance imaging); and
mathematical biology (e.g., models for human cellular processes).
The students, who must be U.S. citizens or permanent residents,
have an opportunity to work on massively parallel (2000+
processor) machines through ASU's Fulton High Performance
Computing Initiative and to do high-performance graphics at ASU's
Decision Theater. These experiences prepare students for
advanced work in climate dynamics, drug discovery, aerospace
design, and similar topics at top graduate schools across the
United States. Special efforts are made to recruit students who
are first-generation college students, women, and members of
other underrepresented groups in the mathematical sciences. The
project is supported by the MPS Division of Mathematical
Sciences, the MPS Office of Multidisciplinary Activities, and the
EHR Division of Undergraduate Education.